Partial Financial Support for the URSI Commission G International Symposium on the High-Latitude Ionosphere in Fairbanks 10-14 August 1992

Partial financial support is requested for the URSI Commission G International Symposium on "A Decade of Advances in Radiowave Probing of the High-latitude Ionosphere and Atmosphere" to be held at the Geophysical Institute of the University of Alaska Fairbanks from 10-14 August 1992. This symposium is timely to assess what has been learned during the past ten years and to consider the application and significance of new facilities. Most of the papers will be published in a special issue of Radio Science similar to what was done for the comparable August, 1982 meeting (Radio Science (18, Nov.-Dec., 1983).